SBIR Phase I: Molecular Level Nanoassembly of Optical Fiber-Based Breathing Sensors

This Small Business Innovative Research Phase I (SBIR) project will investigate the feasibility of utilizing nanoscale molecular self-assembly methods to synthesize high performance optical fiber-based humidity sensors for breathing diagnostics. NanoSonic proposes to use molecular-level electrostatic self-assembly (ESA) processing methods to form multilayered, interleaved metal nanocluster and polymer thin films on the ends of optical fibers. Initial studies have shown that these small, robust and safe optical fiber sensors respond to humidity over a wide range of relative humidities, with a response time of milliseconds or less. All of these factors overcome current significant limitations in the fabrication of breathing monitors for clinical diagnostics.

The commercial applications of this project will be in clinical research and in home health care management.